Finding and Tracking People from the Bottom Up

The project addresses the issues of vision tracking, in particular the consecutive use of hypotheses generated by tracking methods to yield better results in tracking. The proposed approach is likely to be expendable to various tasks, such as finding clothed people in images. Overall the approach promises a powerful technique for building an accurate self-initializing tracker.